A H/D Detector for the Stable Isotope Facility at Dartmouth Earth Sciences Department

This award provides one-half of the funding for the purchase of a hydrogen/deuterium detector that will be added to a mass spectrometer in the Department of Earth Sciences at Dartmouth College. The remaining funds will be provided by Dartmouth. Research projects requiring the detector involve: (1) examining ore deposits, (2) studying chlorite and clay mineral diagenesis, (3) determining the source region of New England granites, and (4) studying the role of fluids in metamorphic belts.